Postdoctoral Fellowship: MSPRF: P-Widths, Mean Curvature, and the Allen--Cahn Equation

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Jared Marx-Kuo is “P-Widths, Mean Curvature, and the Allen--Cahn Equation”. The host institution for the fellowship is Rice University and the sponsoring scientist is Christos Mantoulidis.